Integrating Scientific Research and Technology into 9-12 Grade Earth Science

9986613
HALL-WALLACE

The proposed project, "The Earth Puzzle," is a series of four (4) modules that focus on teaching core concepts in Earth science for 9th grade students. The modules are based in case studies of real problems using real data. The problems will involve global scale investigations to provide a framework for understanding local case studies. Topics addressed by students include weather and climate change, natural hazards mitigation, and changing Earth systems. The materials will incorporate geographic information systems (GIS) technology to facilitate data visualization, manipulation and analysis. Special attention will be given to integrating mathematics and geography into the curriculum. Assessment and evaluation studies will focus in whether student knowledge and reasoning skills are improved by the in-depth activities of the proposed materials.